Software Engineering of Real-Time Operating Systems

The research is concerned with methods and tools for generating real- time operating systems. The work covers topics in software engineering, programming-in-the-large, and real-time processing. Specifically, the following topics will be addressed. 1. a module structuring and interface methodology, based on an acyclic graph model where the nodes represent modules (restricted to processes and abstract data types) and the edges denote procedure import and export relations. 2. a prototype for real-time operating systems design, involving libraries of reusable components. This involves the identification, design, and building of a variety of useful components and structures, such as interrupt handlers, critical section locking mechanisms, message passing, timers, schedulers, input- output systems, cyclic executives, and producer-consumer applications. 3. a graphics front end for interacting with designs. This would permit the construction, modification, and annotation of our module structures, including the association of modules with their code files.